Creating a Kentucky vBNS GigaPOP

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for a DS-3 connection to the vBNS. Applications involve n-dimensional physics based visualizations, creation of a "vision environment" that includes medical imaging in support of image guided surgery, 3D virtual reality digital imaging and VRML development, molecular modeling for pharmaceuticals development, and distributed shared memory multi-computing in a wide-area networking environment. Other efforts include intelligent peptide library searching, materials research utilizing remote operation of instrumentation, and the study of general circulation of planetary atmospheric research. Collaborating institutions include: Cornell Theory Center, Harvard Medical School, Brigham Women's Hospital, NCSA at Urbana-Champaign, Oak-Ridge National Laboratory, University of Kentucky, J. B. Speed Art Museum, and the Lutz Microfabrication Laboratory.